Enhancement of Science/Mathematics Faculty Through Modeling: A Path Toward Critical Thinking

Enhancement of Science/Mathematics Faculty Through Modeling: A Path Toward Critical Thinking A coalition of six two-year and one four-year colleges in southeastern Kansas has designed an eighteen-month multidisciplinary project for faculty enhancement. In each of two summers there will be several week-long workshops designed to: (1) enhance content knowledge, (2) enhance critical thinking skills through the use of modeling, and (3) develop instructional strategies to promote effective teaching. Content areas include: modeling theory, molecular modeling, modeling in environmental science, recombinant DNA, revised college algebra, chromosome mapping, Maple V, chaos and fractal geometry, and classroom assessment. Participants will develop and adopt curricular materials and assessment skills appropriate for their institutions. Academic year activities will provide continuity and participant support.***